Development of a Population Genetics Database Prototype

The investigators will develop a prototype database of published surveys of animal mitochondrial DNA (mtDNA). Surveys of genetic variation in natural populations have been a major component of research in population biology and systematics. The data from these surveys are valuable resource for further research and for applications in conservation biology. Animal mtDNA surveys are appropriate targets for standardized methods of representation and analysis. Variation in mtDNA reflects a hierarchy of maternal lineages, which often exhibit considerable temporal and geographical structure. Although surveys of mtDNA variation may employ any of several methods to detect variation (DNA sequencing, RFLP, DGGE, SSCP), there are standard statistical quantities that can be calculated from any of these data, as well as standard methods for interpreting these statistics. The investigators will identify authors of animal mtDNA surveys by literature searches, and contact them with a request for data. When necessary (and feasible), they will also extract data from printed tables in published articles and reports. The raw data will first be assembled as a hierarchical database in which the data for each survey will consist of records for individual animals that include genetic and other biological data. An object database will be developed in which each survey will be represented as an object that includes both data and a set of methods for manipulating and representing the data. The methods will provide both statistical and graphical representations of population genetics surveys that can be directly compared. Database programming will done in C++, a standard object oriented programming language, and will use PARODY, a database management system that supports persistent data objects. The investigators will test the functionality of the prototype object database with an application that requires a uniform representation of population surveys that conforms to a single sta tistical model. This application will detect patterns in the geographic distributions of mtDNA variation that are shared among multiple species, and will assess their statistical significance by performing a meta- analysis. Previous studies utilizing graphical comparisons of the geographic distributions of mtDNA variation for multiple species have revealed similarities that have been interpreted as evidence for the influence of common historical and environmental forces. However this graphical approach is not based on any statistical model. The object database will enable a new approach to the analysis of multiple population genetic surveys, based on the statistical principles of meta-analysis.